Louisiana State University Request for High Performance Connection to vBNS

ABSTRACT "Louisiana State University Request for High Performance Connection to vBNS" Louisiana State University PI: George Strain NCR-9871138 This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS or other approved high performance network. Applications include research projects regarding computational materials, gravity waves, astrobiology, earth sciences, astrophysics and silicon chip design. Collaborating institutions include Argonne National Laboratory, DoE Hanford Nuclear Reservation, Cal Tech, NASA's Ames Research Center, Stanford, University of California-Davis and -Berkeley, UCLA, Kansas State, Arizona State, Michigan State, Wisconsin, Cornell, Illinois, Nebraska and the San Diego Supercomputing Center.